Oceanographic Instrumentation

0408304
Rabalais
This award to Louisiana Universities Marine Consortium (LUMCON) provides support for the acquisition of new shipboard computers, dissolved oxygen sensors and spares for the existing multi-corer system on R/V Pelican, a research vessel operated by LUMCON as part of the University-National Oceanographic Laboratory System (UNOLS). This acquisition will provide important new shared-use capability for marine scientists using R/V Pelican in their research during 2004 and future years.
***